Research Vessels Portal

Proposal #: 0326802
PI: Ferris Webster
Institution: University of Delaware

This project will build on an existing research ship schedules and specifications database to
create an online portal to information on research vessels. The portal will cover US and
international research vessels with information on their science missions, schedules, equipment,
and specifications. It will include the University-National Oceanographic Laboratory System
(UNOLS) fleet, US vessels outside of UNOLS, and international vessels. The system will be
open to all and will operate continuously.

The Ocean Information Center (OCEANIC) at the University of Delaware's College of Marine
Studies will support the UNOLS Office activities to modernize their information technology
infrastructure and interfaces, such as a next-generation Ship Time Request and Scheduling
system. Joint development with the UNOLS Office will help identify and eliminate duplication.
Onsite development and hosting of UNOLS content and hardware will provide a centralized
location for the UNOLS information technology infrastructure and data as the UNOLS office
moves among participating institutions.

The research element in this proposal is to develop innovative procedures for presenting
information and supporting users needing assistance in cruise planning and scheduling. New
elements to be added to the existing system include open and innovative online tools to:
o Enable interested researchers and institutions to identify opportunities for collaboration.
o Locate areas where research vessels are operating and the types of research being
performed.
o Determine geographic hot spots where research vessel activity is high for various
scientific disciplines